U.S.-France Cooperative Research: Construction and Evaluation of Accuracy Estimators

This three-year award supports U.S.-France cooperative research in statistics and probability between George Casella of Cornell University and Christian Robert of the Laboratory for Theoretical and Applied Statistics, University of Paris VI. The research is concerned with statistical inferences from experiments. In addressing this problem they proposed to further develop procedures for accuracy estimation. Post-data statistical inferences are based on all information in an experiment, including the knowledge of the data. The proposed research will integrate and evaluate approaches to post-data inferences using decision theory and conditional inferences. They will investigate fundamental questions on the behavior of estimators under different loss functions and in loss function robustness and explore problems of assimilating decision theory with stochastic simulation techniques. The cooperative research project takes advantage of complementary interests and expertise. The U.S. investigator brings to this collaboration his expertise in decision theory. This is complemented by the French investigator's extensive experience in computational and algorithmic statistics. Together, their efforts may result in new techniques and methodology of statistical computing, including, better procedures for post data inferences and efficient methods for computation of accuracy measures.